Travel Subventions for Participations in "Brockettfest", A Conference on Mathematical Control Theory. To be Held in Boston, MA October 23-24, 1998

ECS-9812713 Baillieul Support is requested for travel subventions to be given to participants in an upcoming meeting/conference entitled "Brockettfest, A Conference on Mathematical Control Theory, Honoring the Work of Roger W. Brockett. The conference will be held in the Boston area over two days, Friday and Saturday, October 23-24, l998. The meeting will be organized around technical domains to which Brockett has made important contributions, and because there is such breadth and diversity in his accumulated work, we expect very broad interest and participation from the systems and control community.